Mathematical Sciences: The Fourth Southeastern Logic Symposium, March 24 - 26, 1988, Columbia, South Carolina

This conference, the Fourth Southeastern Symposium on Logic, will provide a forum for the exchange of ideas and results on the leading edge of research in mathematical logic and its applications to other branches of mathematics and to computer science, and will facilitate collaboration among researchers and institutions in the Southeast. The four major speakers are C. Jockusch, A. Lachlan, J. Keisler, and H. Woodin. Financial support for graduate student participation is available. Mathematical logic has connections with all aspects of mathematics, and in particular has applications not only in mathematics itself, but in theoretical computer science, including formal languages and their decision problems.